Advances in Materials for Cementitious Composites-Symposium MM-1997 MRS Fall Meeting

9714927 Pachavis The symposium will bring together experts from all over the world to discuss recent advances in materials for cementitious composites. The organizers anticipate that discussions that elucidate various aspects of the structure- composition-property relationships in modern cementitious systems will form the basis of the meeting. The funds being requested from the Foundation will be used to provide partial travel support primarily for graduate students to attend the meeting. ***